Workshop: Managing Health Risks to Wastewater Workers from Ebola and Other Emerging Pathogens: Science and Solutions

1619958
MacDonald Gibson

The 2014 Ebola epidemic highlighted a critical need to evaluate infectious disease risks to sewer repair crews and wastewater treatment plant operators who could come into contact with pathogen-containing sewage. Prior research indicates that domestic wastewater contains a wide range of pathogens, from noroviruses to hepatitis A. Wastewater workers are at increased risk of infectious illnesses compared to the general population. This proposed workshop would engage scientists, wastewater utility operators and managers, and government regulators in assessing available evidence to decide how to protect wastewater and sewer workers from occupational exposure to pathogens.

Increased risk of infectious illnesses among sewer and wastewater workers is well established, but little scientific evidence exists on the effectiveness of alternative measures for reducing these risks. In order to develop evidence-based solutions, information on job tasks that may lead to infectious disease exposure, potential wastewater exposure volumes for each task, current occupational safety practices among this workforce, and the potential for alternative safety practices to reduce risks, is essential. This workshop will help fill these critical information needs. The workshop will lead to four products: 1. Workshop report describing potential tasks during which wastewater and sewer workers could be exposed to pathogens, estimated exposure volumes for each task, current practices for protecting these workers from pathogens, gaps between current practices and recommended practices, and research needed to fill knowledge gaps; 2. Bayesian belief network risk model for predicting infectious disease risks under alternative risk management scenarios and for diagnosing the likelihood that an infectious illness in a wastewater or sewer worker arose from occupational exposure; 3. Peer-reviewed journal article assessing the magnitude of infectious disease risks to wastewater and sewer workers, describing current infectious disease prevention practices among these workers, analyzing the gaps between current and best practices, and outlining research needed to improve the ability to protect this population; 4 Poster of job tasks illustrating recommended personal protective equipment for each wastewater and sewer job task in order to prevent exposure to pathogens. This project will strengthen the evidence available for protecting the health of the approximately 136,000 wastewater and sewer workers in the United States. In turn, because wastewater treatment plants are one of the main barriers to infectious disease transmission, protecting the health of the wastewater and sewer workforce will contribute to ensuring public health in U.S. communities.